Dissertation Research: Variability in Natural and Cultural Lithic Assemblages: An Approach to Hunter-gatherer Landscape Use

Context is crucial in archaeological studies. The proposed project will look at the geological context of archaeological sites on the Green River in Wyoming and see how the landscape influenced the way people used stone tools. Specifically, the researcher will look at untested archaeological assumptions about tool use: that people chose specific raw materials for certain tasks, that people selected raw materials by shape, size, and type of stone depending on the tasks, and that the availability of raw materials in an area influenced the way people planned for, made, and used tools. This is a low.cost but highly creative and potentially useful study that seeks a revised way to deal with long.standing archaeological questions. Its emphasis on detailed examination of the distribution of raw materials in a well.defined area is important; the project promises to address issues that have been neglected. There should be cost effective methodological and technical advances resulting in an increase in precision in documenting the distribution of raw materials as a result of this project. This study has the potential to provide useful information and models not only on the specific sites and area under consideration, but also for other prehistoric hunter and gatherer groups around the world. Archaeologists will learn a great deal about the physical landscape and how people used it. It should also help anthropologists more precisely infer patterns of mobility and technological planning and decision.making processes by prehistoric peoples.